Electroplated High Critical Temperature Superconductor Tape Conductor

Large scale application requirements for high temperature ceramic superconductors (HTSCs), in addition to high current density, include high mechanical strength and chemical and mechanical stability. Multicomponent HTSC laminates with critical current densities greater than 1000 A/cm2 at 77o Kelvin fabricated by the contractor address these requirements. Electrodeposition from a non-aqueous solution of the metal cladding layer in these laminates directly onto the HTSC may offer a more economical and flexible route to cladding HTSC tape conductors making the processing of continuous length tape conductors more feasible. This is a feasibility study comprising the fabrication and characterization of multicomponent HTSC laminates with electrodeposited metal cladding layers.